REU Site: Nuclear Science at the Texas A&M Cyclotron Institute

The REU program at the Texas A&M University Cyclotron Institute focuses entirely on research in nuclear physics and nuclear chemistry. Students in the program will have the opportunity to work closely with internationally renowned scientists at a major university-based nuclear facility.

Undergraduates will gain research experience by carrying out specific projects under the direct supervision of Physics/Chemistry faculty at the Cyclotron Institute. Weekly discussions on forefront areas of Nuclear Physics/Nuclear Chemistry will be led by Institute faculty. Students will have the opportunity to share their work via an oral presentation and virtual poster session near the end of the program. Students of all ethnic backgrounds and types of undergraduate institutions are encouraged to apply.